Young Scholars Program

Wiley College will continue a six-week, residential Young Scholars project in Chemistry, Computer Science, Mathematics and Physics for 20 students entering grades 11,12. Participants will return for follow-up activities on 9 Saturdays in the Fall. On the last Saturday participants will formally present the results of their research projects.